The Costs of Inflation: Theory and Evidence

This project focuses on the costs of moderate inflation. While policy makers view inflation as a serious economic problem, economists have had difficulty identifying major costs of inflation. The research explores the idea that inflation creates variability in relative prices, and thus erodes the efficiency of the price system. The model developed by this project emphasizes the role of long-term relationships. Without long-term relationships, customers benefit from relative price variability by substituting towards low-price goods. And since firms can largely eliminate variability through more frequent nominal adjustment, which is inexpensive, variability can have only small costs to firms. With long-term relationships, in contrast, inflation reduces the information conveyed by current prices concerning future prices, causing consumers to make costly mistakes about whether to enter relationships. In addition, the reduced informativeness of prices makes demand less price- elastic, thereby increasing markups. The research formalizes these ideas and investigates their quantitative importance. The project explores how the web of input-output relationships magnifies the costs of inflation; examines empirically the effects of inflation on relative price variability and on macroeconomic performance; and investigates the mismeasurement of aggregate output under inflation. The project also investigates the causes of inflation in the short run. Theories of costly price adjustment imply that firms adjust prices more rapidly in response to large shocks than to small ones. A corollary is that innovations in inflation depend positively on the skewness of relative prices shocks; if shocks are skewed to the right, for example, firms adjust quickly to shocks in the upper tail, raising the aggregate price level. The project develops this idea theoretically and then tests it using disaggregated data.